Mediated Access to Biological Databases and Applications

This award to an interdisciplinary group of scientists will develop both the theory and the tools both for integrating heterogeneous databases and for querying them. The immediate application of this work will be on data generated by the genome community. However, the need for such a tool is broader than that community. In particular the investigators will provide two tools. The first will be a view mechanism, which allows one to define a view (in yet another data model) encompassing parts of several related databases, and the second is a query language which can be used on this view. This work is being jointly supported by the Database Activity in the Biological Sciences and the Database and Expert Systems Program.